Instruments to Improve the Undergraduate Core Curriculum in Microbiology

Since 1980, and especially within the last three years, there has been rapid growth in the area of microbiology in this department. This is reflected in a 49% increase in the number of students enrolled in the basic microbiology course and the subsequent increase in demand for upper division courses. In response to this demand, a new faculty member, with expertise in immunology, was hired by the department in 1986, providing the department with the opportunity to expand its offerings in microbiology and to provide a core of courses approved by the American Society for Microbiology. The equipment procured through this prospect is enhancing the laboratory experiences offered, and making it possible to offer additional courses in the near future. A teaching microscope, compatible with a video display system, provides both an opportunity to improve instruction in microscopy and to use techniques in fluorescence microscopy. The equipping of a tissue culture laboratory permits the experimental manipulation of mammalian cells. Students also are gaining experience in immunoelectrophoresis, ELISA and other microtechniques, and in the manipulation and visualization of nucleic acids. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.